Travel Assistance for Younger Scientists and Faculty to Attend the Symposium on Polymers for Advanced Electro-Optical Applications, September 21-24, 2003, Fort Lauderdale, FL

Travel funds are requested for speakers/discussion leaders to participate in a Symposium on Polymers for Advanced Electro-optical Applications to be held at the 7th International Symposium on Polymers for Advanced Technologies (PAT 2003) in Fort Lauderdale, Florida, September 21-24, 2003. Funds are requested to supplement the travel costs for 10 younger scientist and faculty at $500 per person to attend the meeting, for a total request of $5000.